The Richard Tapia Celebration of Diversity in Computing Conference 2005; Albuquerque, NM; October 19-20, 2005

This Special Project award gives the Association for Computing Machinery travel funds for undergraduate, graduate student, and MSI faculty to attend the 2005 Richard Tapia Celebration of Diversity in Computing Conference, October 19-20, 2005 in Albuquerque, New Mexico. It gives students an opportunity to interact with the many researchers giving technical presentations at the conference. In addition, the students themselves can present their work in poster sessions and a PhD Consortium. The Tapia Conference thus provides a unique, supportive environment for students from the underrepresented minority groups in Computing Native Americans, Hispanics, and African Americans to engage in intellectual discourse with a range of researchers. It also gives MSI faculty a chance to make technical contacts, and network.